Planning Visit for USA - Monogolia Cooperative Research Project on High Performance Concrete for Construction and/or Rehabilitation of Transportation Stuctures

9908348
Hansen

This proposal is for a planning visit to Mongolia by Dr. Marion Hansen, South Dakota School of Mines and Technology. Dr. Hansen proposes to develop a cooperative research project between the U.S. and Mongolia to implement and improve the production and application of high performance concrete. This visit is a continuation of the 1998 NSF workshop funded by the Division of International Programs on high performance concrete (HPC) and is directed toward the development and implementation of the research, production, and education efforts on HPC between the South Dakota School of Mines and Technology and the Mongolia Technological University.